Collaborative for a New Model for K-12 Teacher Preparation Focused on Enhancing Math/Science Knowledge, New Methodologies and Technology

9354034 Hillman The Temple University's Colleges of Arts & Sciences, Education, and Engineering & Architecture, the Community College of Philadelphia, the School District of Philadelphia and PATHS/PRISM-the Education Partnership have joined to develop a new model for the education of prospective K-12 teachers which integrates new teaching methodologies with math and science core content courses. Since Temple University, in conjunction with Community College, is the major teacher preparation institution for the Philadelphia School District, this will have a systemic impact on the 200,000 students in the Philadelphia School District and serve as a national urban model. The Collaborative will revise selected basic college math and sciences courses to reflect closely the pedagogies and content that the students will need as teachers. These revisions will include: enhanced faculty/student interaction, appropriate instructional materials, inquiry- intensive methodologies as well as new technologies. Several courses will be developed and modified, including, for example, a team-taught cross-disciplinary science course and a cognitive psychology course. Prospective teachers will participate in practica early in their pre-service training at specially selected Professional Development schools. Practicum supervisors will join intending teachers in seminars to reinforce content and pedagogy. The model will include expansion of Temple's 5-year teacher education program in which students who major in Arts & Sciences and minor in education are certified after completing their 5th year. University and Community College faculty will participate in intensive staff development and cross-class visitations with School District teachers. After careful evaluation, the model will be widely disseminated through a national conference and a variety of presentations.